SBIR Phase I: Data Driven Microjet Printing of Electrostatically Self-Assembled Multilayer Electronic Materials and Devices

9960078
Cooper, Kristie
Nanosonic Incorporated

This SBIR Phase I program will demonstrate the feasibility of prototyping and fabricating multilayer electronic components by the data driven microjet spray printing of multifunctional electrostatically self-assembled thin films. The electrostatic self-assembly (ESA) process, licensed from the Virginia Polytechnic Institute, involves the consecutive formation of alternating, oppositely charged monolayers of metal and metal oxide nanoclusters, polymers and other molecules, at room temperature and pressure. The electronic, optical, magnetic and mechanical properties of the multilayer films are determined by the nature of the molecules in each monolayer and the long-range order of the monolayers. In this prototyping system, the operator inputs computer code and chemicals, and retrieves completed test articles for analysis. During the Phase I program this work will be extended to demonstrate the feasibility of forming similar multilayer, multifunctional components by microjet spraying, and would analyze the molecular-level and macroscopic properties of the fabricated microcomponents.
Data driven microjet spray ESA processing would allow the rapid design, synthesis and analysis of prototype electronic devices for communication, display, instrumentation and other electronics applications. Microjet ESA-formed electronic devices with many-micron resolution would allow the low-cost, rapidly reconfigurable fabrication of electronic interconnects, circuit components, simple displays and sensors.